Conference: Great Plains Combinatorics Conference 2026

The Great Plains Combinatorics Conference (GPCC) will be held May 2-3 2026 at the University of Kansas in Lawrence, KS. The GPCC is a regional conference in combinatorics. The conference has a tradition of showcasing the work of junior faculty from the Great Plains region in all areas of combinatorics. Invited speakers for 2026 include Torin Greenwood (North Dakota State), Pamela Harris (Wisconsin-Milwaukee), Reuven Hodges (Kansas), Carlos Martinez Mori (Colorado-Denver), George Nasr (Augustana University), and Shira Zerbib (Iowa State). The conference also features a poster session open to all graduate students and postdoctoral researchers.

Many research universities in the western Great Plains have small groups (often just one or two faculty members) working in combinatorics, and the low concentration of universities leads to geographical isolation. Accordingly, the GPCC was started in 2014 to bring together combinatorialists from the region. A central goal of GPCC is to provide graduate students and junior researchers from the vast Great Plains region with an opportunity to meet leading researchers in the area, learn about recent results in combinatorics, share ideas, and start new collaborations. The website for the conference is at: https://great-plains-combinatorics-conference-2026.ku.edu/